High Performance Liquid Chromatograhy in the Undergraduate Science Curriculum

A computer controlled high performance liquid chromatograph with a multiple wavelength uv-visible detector (HPLC/UV) is being introduced into the biology and chemistry curricula. Instruction in the use of chromatographic instrumentation for environmental and forensic applications is emphasized. This instrumentation is used in introductory chemistry courses, upper-level biology and chemistry courses, and undergraduate research projects. Students conduct environmental investigations analyzing water, soil, sediments, and biota for agricultural chemicals. These and other investigations provide an opportunity to compare and contrast HPLC/UV instrumentation with other techniques as part of the chemistry course on instrumental methods.